SBIR Phase I: CAS: Tree Root Quality Inspection System with Noninvasive Evaluation

This Small Business Innovation Research (SBIR) Phase I project improves the quality, value, benefits, and life span of nursery stock trees, so they will grow and thrive in the landscape where people live. Trees, with their myriad benefits for human health, ecosystem services, and climate mitigation achieve their full potential when they thrive long term. Current methods fail to adequately address tree root quality. By modernizing root inspection, this technology will not only improve industry standards and boost economic competitiveness, but also promote environmental stewardship on a global scale. With this technology, arborists and growers may be able to identify above-ground tree root defects and take corrective action to promote good quality root systems that are needed for these important tree assets to grow to maturity.

This SBIR Phase I project focuses on the development of a 3-dimensional, non-destructive, ground penetrating radar (GPR) computed tomography (CT) system with cutting-edge software analytics to inspect and assess the quality of container-grown root systems in nursery stock trees. This innovation is based on the understanding that the GPR signals are generated by the large differentials between live tissues and the surrounding soil. The technology detects serious root system defects that could cause early tree mortality if not corrected before the tree is planted. The data will be collected with the help of an innovative apparatus designed to seamlessly capture 3D root data from container-grown trees using a commercial GPR system with a wireless antenna that works as a secondary layer around the container, emulating the precision of an X-ray CT scanner. A novel root quality classification model will inform the development of a root analysis software program to build an initial GPR dataset for the machine learning model and subsequently to adopt an active learning approach. Initial experiments will focus on a sufficiently large number of one or two species of trees.